Classical and Quantum Mechanical Investigations of Stochastic Perturbations of Coulomb Orbit

9511824 Burgdorfer The project centers around the description of the complex dynamics of atomic systems. These systems are classically chaotic, although the underlying quantum mechanical description is regular and quasi-periodic. The critical issue is to explore this classical/quantum correspondence in; 1) the dynamical evolution of Rydberg states under the influence of short laser pulses, 2) in relativistic H- beams and 30 in microscopic semiconductors. ***